Conference: 2001 Glycobiology Gordon Conference being held March 4-9, 2001 in Ventura, CA

PROJECT SUMMARY
This award provides partial support for the Gordon Conference on Glycobiology
scheduled for March 4-9, 2001 at the Sheraton Harbortown Resort, Ventura, CA. The
previous conference was held at the same venue on February 21-26, 1999. This was a highly
successful conference and, in keeping with earlier conferences, demand for places
outstripped supply and the 150 delegate places were quickly filled. The Gordon Conference
on Glycobiology is the main venue for presentation and discussion of current and future
directions in the field of glycobiology. By bringing together scientists whose skills span
a wide range of disciplines including chemistry, cell biology, genetics, developmental
biology and bioinformatics, these conferences consistently lead to new insights, new
interactions, new collaborations, and new research directions.
The 2001 Glycobiology Gordon Conference will build on the successful
traditions of previous conferences whilst taking account of the many exciting new avenues
of glycobiological research which are being opened up by the information emanating from
Genome Projects. For example, once the amino acid sequences of the several hundred
thousand proteins that make up a human being are known, scientists will be faced with the
awesome challenge of understanding their functions and learning how post-translational
events such as glycosylation contribute to human health and disease. Glycobiologists will
play key roles in the post-genomics era and the 2001 Gordon Conference is well timed to
facilitate inter-disciplinary collaborations essential to the successful exploitation of
genomic information of relevance to glycobiology.
The main themes of the conference will be: (i) structural glycobiology with special
emphasis on technological developments and new information pertaining to
lectin-carbohydrate recognition; (ii) the impact of genomics on glycobiology; (iii)
discoveries from knockout mouse experiments; (iii) glyco-immunology; (iv) reproductive and
developmental glycobiology; (v) neuro-glycobiology; (vi) glycoconjugates as therapeutic
agents. Since glycopolymers are important in a wide range of biological and pathological
systems, this multi-disciplinary approach should appeal to a broad spectrum of
investigators.